Mathematical Structure in Fluid Mechanics

Vasseur
Dms-0607953

The investigator carries out a qualitative study of partial
differential equations arising as models in fluid mechanics and
chemistry. Understanding the properties of these models is a
fundamental challenge both in mathematics and science. The
regularity and stability of solutions are issues strongly related
to nontrivial physical phenomena like turbulence and phase
transitions that are complex multiscale problems. Analyzing
mathematical models of these phenomena often requires the
development of novel tools encompassing techniques from analysis,
applied mathematics, and stochastics. This project, which
addresses both theoretical and applied issues, spans from
conservation laws to Navier-Stokes equations, kinetic equations,
and motion of particles in fluids. It requires tools from the
theories of nonlinear partial differential equations, asymptotic
analysis, probability, and stochastics.

The discovery of mathematical structure in physical models
is of great importance for a deeper understanding of the physical
phenomena themselves. It gives also some hints of the range of
validity of the models. In this project, the investigator
develops and studies new models involving couplings between fluid
mechanics and physics far from equilibrium. This field has
important applications in science and engineering. For example,
it models pollutants in a river or combustion of gasoline in an
engine. The applied and mathematical challenges stem from the
complexity of the phenomena.